Conference On Strategic Directions In Computing Research

The Conference on Strategic Directions in Computing Research is timely and important for computing related disciplines. The results of the conference will assist academic, industrial, and governmental organizations in making the difficult decisions of which research directions to pursue in the next few years. As a result, the conference should have a positive impact on a wide range of computer- oriented research at a variety of levels.